Neural Binding and Promotion of Neurite Outgrowth by Cytotactin/Tenascin Domains

9422111 Crossin The development of the nervous system is dependent upon coordinated interactions among specialized cells including neurons, glia and other types of support cells, and of these cells with surrounding extracellular matrix (ECM) proteins. Cell attachment and migration as well as neurite outgrowth, guidance, and fasciculation are all affected by interaction of cells with components of the ECM during both development and regeneration. This research focuses on analyzing a specific ECM protein, called cytotactin/tenascin, and its interaction with nerve cells and with other matrix components. This molecule is particularly interesting because it has been shown to promote cell growth under some conditions and to inhibit growth under others. The results of these studies should reveal mechanisms of neurite outgrowth promotion by molecules present in regenerating nerves and also promise to shed light on general mechanisms of cellular guidance and repair occurring during development and regeneration of the nervous system.